Methods of Hankel and Toeplitz Operators in Noncommutative Analysis

PI: Vladimir Peller
Proposal Number 0200712

Abstract

The principal investigator will use vectorial Hankel and
Toeplitz operators in noncommutative analysis. In
spite of the recent progress of approximation theory for matrix
and operator functions there are still many open problems
important in applications such as control theory, multivariate
stationary processes, etc. The principal investigator will
look for a sharp estimate of the degree of the superoptimal
approximant of a rational matrix function and sharp estimates of
the resolvents of Toeplitz and Wiener-Hopf operators acting on
spaces of vector functions, study properties of Wiener-Hopf,
thematic, and canonical factorizations of matrix functions, study
different regularity conditions for multivariate stationary
processes in spectral terms, study Hankel-Schur multipliers, study
Schatten--von Neumann properties of certain integral operators
arising from Schrodinger operators.

Among operators acting on spaces of analytic functions there are
two classes that play an extremely important role. These are
Hankel operators and Toeplitz operators. The theory of such
operators has been rapidly developing for the last 20 years.
Recently it has become clear that to satisfy the needs of control
theory, prediction theory and other applications, it is necessary
to study Toeplitz and Hankel operators on spaces of vector
functions. This leads to a considerably more complicated theory,
The principal investigator has obtained recently interesting
results that required a new technique. He is going to continue to
work in this direction and apply Hankel and Toeplitz operators on
spaces of vector functions to different problems in noncommutative
analysis.